Mathematics and Engineering Scholarships

This program is providing educational and financial support services to thirty talented and financially disadvantaged mathematics and engineering students. The scholarships are increasing the rate of degree completion and subsequent entry into the workforce or postgraduate studies. In addition to the financial support an ongoing comprehensive mentoring and guidance system designed to build leadership skills, maturity and responsibility has been established.